Helium Isotope and Rare Gas Geochemistry of Mount Etna: Constraints on the Evolution of a Continental Volcano

This project is intended to document 1) the degree of temporal variability for 3He/4He ratios in historic and dated lava flows, over timescales ranging from 1 year to >100,000 years, 2) the relationship between He and the radiogenic isotopes of Pb, Sr and Nd, and 3) the variations in 3He/4He and rare gas abundances for hotsprings, fumaroles and igneous rocks. Mount Etna is among the best documented volcanoes in the world and provides an excellent natural laboratory for helium isotope and rare gas studies. The results should provide insight into the dynamics of upper mantle- lithosphere-crust interactions beneath Mount Etna, and constraints on the chemical evolution of the magmatic reservoir(s) and their degassing history.